Observations and Theory of Supernovae

ABSTRACT

Wheeler, Craig
AST-9818960

This project involves a wide variety of theoretical and observational subprojects related to the study of supernovae. The core effort is to better understand Type Ia supernovae and their use as standard cosmological distance indicators. This involves a systematic study of the spectropolarimetric properties of supernovae and the prevalence of polarization and its possible relationship to asymmetry in the explosion event. The team of collaborators is developing computer models for the polarization spectra of asymmetrical expanding envelopes of supernovae. These models are matched to the spectropolarimetric observations the group collects at McDonald Observatory. This effort will make heavy use of the Hobby-Eberle Telescope. In a related effort, work will continue towards achieving a theoretical understanding of the thermonuclear 'combustion' processes distinguishing the so-called "dim" Type Ia supernovae that have been detected at large redshifts.